High Resolution Nd: YAG Pumped Optical Parametric Oscillator Lasers for the Chemistry Laser Pool at UCSB

This award from the Chemistry Research Instrumentation and Facilities Program will assist the Department of Chemistry at the University of California--Santa Barbara in the purchase of Nd:YAG pumped optical parametric oscillator (OPO) as sources of high-brightness, high- resolution tunable radiation. This equipment will enhance research in a number of areas including the following: (a) Electron Affinity of Carbon and Other Interesting Clusters; (b) Photochemical Properties of Transition Metal Complexes; (c) Spectroscopic Studies of M+- H2 Complexes (M=Ca, Sr, and Ba); and (d) Surface Chemistry of State-Selected, Vibrationally Excited Molecules. A tunable infrared laser can provide important information about chemical reactivity. Its use may enable breakthroughs in our understanding of the properties of reactive and nonreactive of molecules.